Core-Plus Mathematics Project

The Core-Plus Mathematics Project will develop, field-test, evaluate and, in cooperation with a publisher, nationally dissemiate a complete three-year high school mathematics curriculum for all students. Each year the curriculum will feature multiple stands of algebra/functions, geometry/trigonommetry, statistics/probability, and discrete mathematics connected locally by common topics and globally by the fundamental themes of data, representation, shape, and change. The curriculum will emphasize mathematical modeling and will featue full use of graphics calculators. The project willcreate a curriculum consisting of a common core of mathematical experiences for all students together with differentiated applications and extensions of core topics. The project is a joint undertaking of development teams at Ohio state University, the University of Iowa, the University of Maryland, the University of Michigan, and Western Michigan University. //